SBIR Phase II: Synthesis of Negative Birefringence Liquid Crystals

*** 9800827 Thurmes This Small Business Innovation Research Phase II project will produce liquid crystals with negative birefringence, and liquid crystal mixtures with negative birefringence dispersion. The negative birefringence materials will be used to optimize liquid crystal mixtures' birefringence for liquid crystal displays. Display fabrication with negative birefringence dispersion liquid crystals will give achromatic displays; that is, displays which are equally transmissive to lights of different wavelengths. There are many immediate ramifications of developing a liquid crystal with negative birefringence dispersion. For instance, liquid crystal shutters will no longer suffer from such severe chromatic disturbances, optical filters will be much more color-balanced and provide more free spectral range, polarization interference filters will need fewer stages and hence be less expensive while transmitting more light, and Fabry-Perot tunable filters can be made using liquid crystal SLMs. The potential commercial applications of the improved performance characteristics described above will include liquid crystal shutters without chromatic disturbances, optical filters with more color balance and more spectral range, polarization interference filters, Fabry-Perot tunable filters. ***